Oceanographic Instrumentation - 2002

0200548
Walden
This award to Woods Hole Oceanographic Institution in Massachusetts provides instrumentation to significantly improve the oceanographic research capabilities of the research vessels Atlantis, Knorr and Oceanus, three ships operated by WHOI as part of the University-National Oceanographic Laboratory System research fleet. Specifically, this award will provide new sensors for CTD operations on all three ships, new software/firmware for acquisition of satellite imagery on two ships, an new attitude/heading sensor (GPS-based) for one ship, plus pumps for collecting clean sea water samples from any vessel and moored ocean profilers for long-term studies of physical oceanography. These improvements will be of substantial advantage to marine scientists using these three ships in their research during 2002 and future years.
***